CPA-CSA: Algorithms and Implementations for Scalable Transactional Memory

Within a few years, every laptop/desktop/server processor will be a
multi-core machine. For an application to perform well, it must be
efficiently parallelized to execute on all the cores on the machine.
Chip manufacturers must therefore provide architectures that
make it convenient for programmers to partition an application into
multiple parallel threads. The Transactional Memory (TM) programming
model is widely acknowledged to be the best known model for
concurrency: it eliminates deadlocks, provides high performance in
the common case, and greatly simplifies programming. It is receiving
great attention in research conferences and is also being incorporated
in commercial processors. One of the biggest overheads for such a
system is the communication required between cores to implement
transactional semantics. This overhead significantly impacts
performance and power consumption of future processors.

The project explores algorithms to not only reduce the required amount of
communication, but also explores mechanisms to reduce the overheads
of communication. The key insight behind the proposed work is that an
optimal on-chip network and transactional memory implementation will
emerge by closely studying the interaction between the two. The
insight developed during this work will lead to better methodologies
to compute an optimal on-chip network. The simulators and tools
developed during the research efforts will also support projects in
graduate and undergraduate courses at the University of Utah.